Mathematical Sciences: Linear and Non-Linear Scattering

9505530 Zworski The proposed research lies in the general area of spectral and scattering theory. More specifically, the proposer wants to investigate distribution of resonances and geometric properties of the scattering matrix. This research deals with a class of differential equations arising in solid state physics and scattering phenomena by convex obstacles. The investigator seeks to lay a mathematical foundation for scattering phenomena and to consider more sophisticated scattering problems, say scattering on finite volume hyperbolic surfaces.